Project ESTEEM (Equitable Science, Technology, Engineering, Education, and Mathematics)

Project ESTEEM is a collaboration of faculty from Hofstra's Center for Technological Literacy, CUNY Queensborough Community College, and Nassau Community College to develop a framework for infusing gender equitable information and materials into science, technology, engineering, and mathematics (STEM) curriculum at community colleges. Project ESTEEM enhances women's opportunities to succeed in STEM studies leading to further education and careers in STEM disciplines. The framework helps teachers, publishers and curriculum developers to infuse equity into existing curriculum materials, rather than to develop new equity materials. Two example curriculum modules from partner ATE Centers of Excellence are adapted as exemplary models of how to adapt existing curriculum. The framework is broadly applicable to all STEM curriculum materials at all levels of education.